Renewal to NSF OCE-0962966: Seafloor Samples Laboratory

This proposal seeks funding to support the continued operation of the marine geology sample repository at Woods Hole. The repository database is web-accessible. Over 16,000 samples were loaned over the previous grant period. Institutional support includes walk-in cold storage units as well as standard storage space.